Great Plains Cereals Biotechnology Consortium (GPCBC)

EPS-9977777
Zeigler
This project provides for the establishment of a multi-state consortium for plant biotechnology research. The Land Grant Universities in Kansas, Nebraska and Oklahoma, joined by the Noble Foundation, have united to create the Great Plains Cereals Biotechnology Consortium (GPCBC). These three states produce a major portion of the world's cereals. The states have joined together to form a consortium to address challenges and opportunities in improving cereal productivity and profitability.

The Consortium will focus its research on the three cereals of greatest importance to the Great Plains states - wheat, maize and sorghum. The primary goal of the GPCBC is to understand the molecular basis of, and to manipulate, plant defense mechanisms against pathogens and pests. The Consortium will develop a common set of research goals to develop and invest in strengths across the consortium while avoiding duplication of resources at any member university. Responsibilities will be assumed by members according to their particular capabilities and resources allocated accordingly. Information flow will take place through symposia, exchange of faculty, post-doctoral fellows and seminar speakers, and eventually through shared graduate programs. The Consortium will recruit a new molecular geneticist and will initially support four post doctoral fellows and two graduate students.